Combinatorial aspects of geometry and representation theory

Abstract for award of Haiman DMS-0301072

Professor Haiman works on problems in combinatorics related to
algebra, geometry and representation theory. Using new discoveries on
the geometry of Hilbert schemes, he has recently proved the positivity
conjecture for Macdonald polynomials and established a formula in
terms of these polynomials for the character of a "doubled" version of
the classical spaces of harmonics for symmetric groups. Evidence
suggests that these results fit into a larger framework in which
Nakajima's quiver varieties play the role of the Hilbert scheme. In
his continuing research, Haiman hopes to establish the validity of
this larger framework and further develop the connections between
combinatorics, Macdonald polynomials and Hilbert schemes. He also
plans to work on unsolved problems connected with q-analogs of
Littlewood-Richardson coefficients introduced by Shimozono and Weyman
and the q-Schur functions of Lascoux, Lapointe and Morse. Finally, in
collaboration with Grojnowski, he will return to a study he initiated
some years ago of Hecke algebra characters and their connection with
combinatorial properties of immanants.

Combinatorics is the mathematical study of things that can be
described, counted and manipulated in simple and explicit terms:
things like trees, Young diagrams, or strings of symbols, that we can
write on paper or encode in a computer. In my view, what makes
combinatorics interesting is that deeply abstract mathematical
concepts--such as geometric spaces in many dimensions, or algebras of
symmetries--tend to have an underlying combinatorial structure. My
current work connects the geometric properties of special spaces such
as Hilbert schemes and quiver varieties with the combinatorial
properties of Young diagrams and symmetric polynomials. By
understanding the connection, we can deal with these abstract spaces
on a concrete level and get important new insights about both the
geometry of the spaces and the rules governing the combinatorics
associated with them.